Sabbatical Training in Neuroscience

The Principal Investigator will spend the 2004-2005 year studying neuroscience at Pittsburgh's Center for the Neural Basis of Cognition (CNBC), which is operated jointly by the University of Pittsburgh and Carnegie Mellon The plan is (i) to acquire the scientific knowledge contained in four CNBC graduate courses, (ii) to get experience with some basic experimental methods, (ii) to join reading groups and attend seminars, and (iv) to attend scientific meetings, and make special trips when necessary in order to meet key researchers in the field..